IAPSO 2005 Travel Grant

This award provides financial support for twenty travel grants directed at scientists fro lesser developed countries to attend the IAPSO/IAG/IABO General Assembly in Cairns, Australia, August 22-26, 2005. The scientific program encompasses the most recent advances in geodesy, oceanography and marine biology. The dynamic nature of our planet naturally creates interactions of life within the oceans, the oceans themselves and the continents and many of the symposium sessions cover interdisciplinary themes.

A total of 26 sessions will cover broad topics such as:

ocean circulation
sea-level change
gravity field determination
Earth processes and deformation
reference frame definition
marine risks and sustainability
interannual and decadal-to-century climate predictability
census of marine life

In addition, more focused sessions will be held on topics such as recent developments in geodetic analyses, Argo and GODAE, pelagic bio-geography, atmospheric studies, deep ocean exchanges, geodesy of the planets and many other themes.